SGER: Statistics of Extremes, with Applications in Financial Time Series

The proposal pursues a series of developments of new test statistics
for tail independence and of new measures for tail dependence.
Particularly, the investigator studies extreme correlation
coefficient, tail dependence measures, gamma test statistics. These
are related to the study of statistics of multivariate extremes. In
financial applications, the proposal will also specify new models
for asset pricing and extreme co-movements for market data, and
develop new portfolio evaluation tools more sensitive to these
co-movements. A new measure for extreme co-movement is introduced.
The proposal includes the development of statistical estimation
methods for max-stable processes. Procedures of how to calculate
portfolio risk measures are also introduced using combined Markov
process and max-stable process models.

As all definitions used for extremal dependence depend on some limit
procedures and often concern statistical testing for parameters at
the edge of a specific parametric space, great care has to be taken
to obtain tests with sufficient power. The proposal is exactly
aiming at finding a solution for this. The investigator will
carefully compare and contrast new approaches with existing ones
using simulated as well as real data. The real data will come from
areas as diverse as insurance, finance, telecommunications,
climatology, seismology, medicine, etc. Throughout applications in
diverse fields (like above), extreme risks play an important
scientific, societal as well as (possibly) political role. The
dissemination of new statistical tools leading to a better
understanding of the occurrence of joint extremes is of great
importance. This can be very well achieved at the level of new
graduate courses, publications in journals aimed at a broaden
audience and in discussion with scientists from other fields.